Studies Involving Molecules and Intermediates of TheoreticalInterest (Chemistry)

This research project in the Organic and Macromolecular Chemistry Program is designed to provide deeper understanding of molecular structure and reactivity in organic compounds. This new knowledge is to be gained through preparation and study of new molecules representative of polyfunctional and topological types not encountered among natural products. Several projects will be undertaken in the areas of non-natural products organic chemistry. Emphasis will be given to the completion of ongoing work involving cyclooctatetraenes, relay orbital systems, and highly unsaturated propellanes. New studies to be initiated will involve the development of a route to truncated tetrahedrane and its triene isomer, together with thermochemical assessment of homoaromaticity in the latter. Another aspect of the investigation is to focus on the preparation of the first known sigma-allyl cation and a detailed analysis of the new structural framework involved. Other work will be aimed at the first preparation of an organic "belt". Access to this new type of molecular host will likewise require a major synthetic effort. Once the prototype approach is successfully realized, avenues to larger beltenes will hopefully be opened. Detailed investigation will also be made of alpha- silyl carbanions, where preservation of configurational stability has been observed in preliminary studies.